Technical Services

9700593 Willis This award to Oregon State University provides shipboard technical support, shore-based support, instrument maintenance and instrument calibration for researchers using R/V Wecoma, a research vessel operated by the Oregon State University College of Oceanographic and Atmospheric Sciences as part of the University National Oceanographic Laboratory System research fleet. The technical support awarded here will assist NSF-funded ocean researchers conduct a diverse suite of oceanographic studies in the North Pacific Ocean in 1997. ***